A Composite Fiber-Reinforced-Plastic and Concrete Structural Slab

This is an innovative award. The objective is to determine the feasibility of using H-shaped fiber glass reinforced plastic as the reinforcement for a concrete beam. The potential benefit would be the elimination of corrosion which takes place on the conventional steel, thus increasing the life span of concrete structures.